Developing American Indian Secondary Teachers

Salish Kootenai College

Abstract

Salish Kootenai College (SKC) is the third tribal college to take up the challenge of filling the secondary STEM teacher void. The Developing American Indian Secondary Educators Project (DAISE) will initiate a Bachelor of Science in Secondary Science education degree program. The five objectives of the DAISE Project are:

1. Develop and implement a high quality, culturally competent, sustainable
2. Bachelor of Science in Secondary Education degree program at SKC
3. Increase the number of American Indian secondary science and math teachers.
4. Improve coordination of student services between high schools and SKC.
5. Increase the number of American Indian high school students completing higher level STEM coursework.
6. Enhance the SKC faculty, curriculum and infrastructure to enable better support for American Indian students.